RUI: Methane Emission, Net Ecosystem CO2 Exchange and Remote Sensing Relationships in Subtropical to Boreal Wetlands

9527698 Whiting Monitoring athe exchange of trace gases (especially greenhouse gases) between terrestrial systems and the atomsphere will provide a means to assess the effectiveness of changes in anthropogenic emissions of future climatic conditions. Remote sensing technology has the potential to provide monitoring capabilities in estimating carbon dioxide exchange (primary production) and methane emission from wetlands. To utilize remote sensing as an accurate predictive tool in estimating methane emissions form a variety of wetland, a systematic comparison of methane emission, primary production and remote sensing relationship across large latitudinal will be an important step. This project will examine these relationship within and among three primary wetland systems chosen along a wide latitudinal gradient (25 N to 60 N): the subtropical Everglades, the expensive marshes of southwestern Louisiana, and the boreal peatlands of Alberta and Northwest Territories. The project should produce results applicable to a broad suite of questions at regional-t-global scales having to do with the interaction of human activity and climate change.